Improved Dynamic Seal Performance Using Differential Wear Processes

The performance of dynamic seals depends on the local liquid pressure between the two sliding surfaces. By controlling the local surface topography it is possible to control the fluid pressure on a micro scale. In this project patterns of surface topography are created by differential wear of various segments of the surface which have been treated to have different properties to some depth or to have different surface roughness. Results from Phase I of this study show that the concept is feasible. In the current phase a theoretical model will be developed for differential wear and the resulting fluid pressure development and experiments will be conducted on a number of surface modification processes as means to develop the differential wear patterns which give optimal seal performance.